Undergraduate Scientific and Engineering Visualization Laboratory (USEVL) at the University of Pennsysvania.

A major expansion of an Undergraduate Scientific and Engineering Visualization Laboratory (USEVL) to be directed by Professor Norman I. Badler. Based on the Director's existing nationally and internationally recognized Computer Graphics effort, the USEVL brings modern high-performance workstations for visualization into the Undergraduate curriculum and experience. Visualization provides the most direct and exciting pathway into modern high-performance computing. Not only does the Computer Science student learn the principles and use of high-speed workstations, but the experience carries over into many other aspects of scientific and technological education. Conversely, non-Computer Science majors (that is, other Engineering and Science majors), discover that the power of visualization can be applied to the fundamental concepts and applications of their own disciplines. The development expands the existing educational graphics nucleus of four Silicon Graphics Iris 4D workstations by adding five workstations plus a fast fileserver. Existing in-house and no-cost commercial software will be used to provide instant usability for the USEVL facility.